Contributions of Ductile Shear Zones to Postseismic Deformation: Mechanical Advances and Data Assimilation

The rapid aseismic deformation that often follows earthquakes
provides a natural opportunity to learn about the mechanical behavior
of the Earth's crust. Geodetic data sets documenting postseismic
deformation have become much more plentiful and detailed in the last
few years, yet many studies of these data sets have been limited to
documenting that a particular mechanism "is consistent with" the
observed data. The wide variety of candidate mechanisms that have
been proposed as the responsible process testifies to the importance
of postseismic deformation in geodynamics, but also to our current
lack of understanding of this phenomenon. The proposed study will
combine a modeling framework that can simultaneously consider
multiple rheological behaviors with the geodetic observations through
a data assimilation algorithm. This approach, will identify the range
of processes consistent with the data and rule out others,
constraining the rheology of the crust directly from geodetic data.
Models of shear zone formation and evolution coupled with a
seismogenic fault will be developed to address whether the source of
postseismic deformation is distributed or localized.

The proposed study will contribute to basic knowledge of dynamical
processes in the Earth's crust and to our ability to evaluate their
contribution to earthquake hazards. The improved understanding of
shear zone formation will have implications for structural geology
and mechanical engineering, where localization is a permanent
concern. The data assimilation aspect of this work will help
introduce a widely successful scientific approach to fault mechanics
problems. The project represents the merging of the complementary
research fields of the investigators, geodynamics for one, and
geodesy and data assimilation for the other.
--